Scientific Computing Research Environments for the Mathematical Sciences (SCREMS)

The Department of Mathematical Sciences and Center for Applied Mathematics
and Statistics at the New Jersey Institute of Technology will
purchase an eight node (sixteen processor) Alpha Beowolf cluster which
will be dedicated to the support of research in the mathematical sciences.
The equipment will be used for several projects, including in particular:

1. What lessons from small neuronal networks apply to larger ones?
Victoria Booth, Amithaba Bose, and Farzan Nadim.

2. Numerical solutions of mixed functional differential equations
Christopher Elmer.

3. Time-dependent oxygen transport from microvascular networks
Daniel Goldman.

4. Pattern formation in thin liquid film flows
Lou Kondic.

5. Full numerical simulation of microwave-enhanced chemical vapor
infiltration processing
Burt Tilley.